Critical Transitions in Posture and Locomotor Control

This research by Dr. Woollacott is aimed at the hypothesis that the development of balance control and walking requires the maturation of a number of body systems, including the nervous system, muscular system and skeletal system. The specific aim is to measure the times at which individual components (neural, muscular and skeletal) develop amd mature, in order to determine which components are the last to develop and thus limit the emergence of stance. This project is a longitudinal study of the development of balance in individual children from 8 to 18 months of age. Measurements will include: 1) the muscle activation patterns used in balance, 2) the movements of the individual body parts during balance, 3) the use of vision, vestibular (inner ear), and proprioceptive (muscle sensation) senses in balance control, 4) changes in muscle strength, and 5) changes in body size and body proportions, across the age range of 8 to 18 months. These experiments will allow the creation of a model of postural development, including a time frame of maturation of individual body subcomponents, which will be useful in predicting the development of balance and walking abilites in children. This work will contribute to understanding the emergence and maturation of independent standing and walking in children.